Reinvigorating Engineering and Changing History (REACH) Scholars Program

The Reinvigorating Engineering and Changing History (REACH) Scholars Program at Purdue University will offer qualified Masters and direct admit Ph.D. engineering students opportunities to explore multiple academic pathways and to work closely with their peers and with faculty to create a community of scholars who will be prepared broadly for careers across multiple domains. Overarching goals of the program are to help students transition from undergraduate programs to engineering programs at Purdue and to inform Scholars about transition options after they obtain their Masters or Ph.D. degrees. REACH Scholars will be recruited from eleven Schools within the College and will be selected based upon their academic talent and their financial eligibility for Graduate Assistance in Areas of National Need (GANN). Upon determining the financial need of admitted students, REACH will award up to $10,000 scholarships annually to approximately 29 engineering graduate students entering their first semester at Purdue University.